South Plains Mathematics Scholars

This project is establishing the South Plains Mathematics Scholars Program (SPMSP), in which academically talented students from low-income families receive scholarships for undergraduate study leading to a degree in mathematics. Following an initial year focused on setting up the project and on recruiting, the project is providing scholarships worth up to $10,000 per year to approximately 20 students during years 2-5. Students are receiving intensive individual academic mentoring and form part of a supportive cohort with opportunities for undergraduate research. The primary objectives of the SPMSP are to increase the population of students from low-income families, to improve retention levels for mathematics majors, and to disseminate information regarding methods of improving retention. The intellectual merit of the project lies in its use of a cohort model for increasing student retention that is carefully designed to fit the needs of the south plains student body. The project has broader impact because it is enhancing the teaching quality of the faculty and advancing the learning of all undergraduates. It is providing new educational opportunities for students across the south plains region, particularly women and minorities. Results are being disseminated nationally through journals and conference presentations.